Studies of Integration and Implementation Issues in the Active Control of Lifeline Systems

This project concentrates on general key research issues pertaining to lifeline earthquake engineering systems using active control techniques. A consortium consisting of four research universities and multidisciplinary investigators will conduct a sequence of well coordinated analytical and experimental investigations designed not only to produce results of immediate usefulness, but also to lay the groundwork for future needed developments in the technological areas. The objectives of the proposed major tasks are to: 1. Develop, design, fabricate and assemble a medium-sized laboratory model of a distributed system representing a generic lifeline system such as a long-span bridge. 2. Design and implement a distributed fiberoptic sensing system for monitoring the deformations of test specimen. 3. Perform supporting analytical studies to (i) evaluate the control energy requirements for various active control schemes, (ii) establish performance bounds on instrumentation and actuator hardware, and (iii) investigate the performance limits of vibration sensing techniques utilizing fiberoptic approaches. 4. Perform a systematic series of active control experiments to (i) correlate the experimental measurements with predictions on the basis of suitable mathematical models, and (ii) identify technology issues that may impede the full-scale field implementation in the future. The multidisciplinary research team will ensure that the practical implementation issues for future field applications are clearly identified and addressed.